Acqusition of a Protein Peptide Sequencer

An on-line PTH analyzer will enhance the capabilities of a newly acquired protein/peptide sequencer. Rapid, accurate and micro- scale determination of the specific amino acid sequence in proteins and peptides of importance has become necessary for many types of biochemical, molecular and structural research. Biomedical research has been dramatically changed by this technology and its availability permits scientists to make rapid progress. Specific projects include: intracellular protein degradation in mammalian cells; the structure of the coated vesicle (H+)-ATPase; characterization of ribonuclease inhibitor; the mechanism of cellular protein compartmentalization; and the characterization of phosphatidylinositol kinases.